Request for X-Ray Diffractometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the School of Chemical Sciences at the University of Illinois in Urbana-Champaign will acquire an X-ray diffractometer with CCD detector. This equipment will enhance research in a number of areas including the following studies on a) new main group and transition metal catalysts for fine chemical synthesis; b) inorganic catalysts for environmental clean-up and hydrogen production; and c) supramolecular assemblies derived from heterocyclic and porphyrinic components.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, especially synthesis of important inorganic chemicals and environmental chemistry.